Progress in Thermoelectrics - From Traditional to Novel Materials

This award supports travel expenses and registration fees for invited speakers, undergraduate and graduate students, post-docs, and under-represented, female and junior faculty to attend and present at the symposium EQ01 'Progress in Thermoelectrics - From Traditional to Novel Materials' held as part of the Materials Research Society's 2022 Fall Meeting in Boston, November 27 to December 2, 2022. The meeting also has a virtual version scheduled for December 6-8. This meeting will provide opportunity to exchange research results, network and discuss topics related to research and education in the area of thermoelectric materials.